Research Experiences for Undergraduates in Chemistry at Brandeis University

Professor Irving R. Epstein and other members of the Chemistry Department of Brandeis Uniersity are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1991-93, ten undergraduate students will spend ten weeks each summer actively engaged in a variety of research projects. Projects range from studies of long-range order in proteins and surfactants to the chemistry of interstellar space. Students will be required to present both oral and written reports on their research. Extensive follow-up plans will encourage and monitor the participants' interests in a career of research and teaching in the chemical sciences.